Inconsistency and bias in thinking about tax reform

Various fallacies in thinking interfere with judgment about
matters of tax. In particular, people may oppose or
inconsistently support optimizing reforms --- or favor reforms
that are less than optimal --- because of three clusters of
cognitive biases. One, the status-quo effect, leads people to
resist beneficial change: they are apt to weigh perceived losses
more than foregone gains. Two, manipulation of the point of
comparison affects how people perceive the advantages and
disadvantages of reform proposals. Three, people underestimate or
ignore various "unseen" elements of fiscal policy, such as
imputed income and the incentive effects or opportunity costs of
various tax and transfer programs.

We shall explore these effects in a series of experiments, some
conducted on the World Wide Web and others conducted with other
samples. We shall examine these effects in a wide range of
realistic tax reform proposals, e.g., those concerned with taxes
on married couples, hidden taxes, payroll taxes, consumption
taxes, taxes on imputed income, pollution taxes, and taxes that
substitute for private expenditures (such as those that pay for
health care). Finally, we shall attempt to "debias" the effects
of interest, and explore the transfer of training from one domain
to another (in part by using samples of people who have already
been trained in the economic theory of taxes).